Boundedness and moduli of Calabi-Yau varieties and related topics

Algebraic geometry is the study of geometric shapes defined by polynomial equations. These objects, called algebraic varieties, generalize familiar geometric shapes such as circles, ellipses, parabolas, and hyperbolas to arbitrarily high dimensions. Algebraic geometry has deep connections with number theory, topology, differential geometry, and theoretical physics. One of the main goals in algebraic geometry is the classification of algebraic varieties. At its heart, this means determining which geometric shapes are possible, identifying those that cannot be decomposed into simpler building blocks, and understanding their structure. For example, a sphere cannot be built out of simpler shapes of smaller dimension, while a cylinder decomposes naturally as a product of a circle and a line segment. Analogously, in algebraic geometry, three families of algebraic varieties play the role of fundamental building blocks: Fano varieties, K-trivial varieties (including Calabi-Yau varieties), and varieties of general type. While mathematicians have achieved a broad understanding of Fano varieties and varieties of general type, K-trivial varieties remain mysterious, even in dimension 3. This project will develop new methods for the classification and moduli theory of K-trivial varieties, with a focus on Calabi-Yau varieties. The resulting advances have natural connections to arithmetic geometry and the mathematical foundations of string theory. The project also includes research opportunities for Ph.D. and undergraduate students. Furthermore, the principal investigator will be involved in the organization of mathematical events and editorial service.

The project will pursue three complementary directions, using tools from the Minimal Model Program, Hodge theory, and positive characteristic birational geometry. The first is to extend the moduli theory of K-trivial varieties by studying the recently introduced Baily-Borel-type compactifications and applying them to understand families of minimal models. The second is to establish new boundedness results for fibered Calabi–Yau varieties, including explicit bounds for discrete topological invariants. The third is to extend these methods and the theory of complements to positive characteristic, proving boundedness results for Calabi-Yau 3-folds and investigating the relationship between singularities in characteristic zero and positive characteristic.